Construction of a Dissolved Inert Gas Extraction Line for the World Ocean Circulation Experiment (WOCE)

An all-metal vacuum line will be constructed for the extraction of dissolved inert gases from water samples, and sealing of samples for mass-spectrometric tritium analyses. The purpose of the line is to increase the present tritium-helium measurement capacity and to reduce the sampling-to-final data production time for the World Over Circulation Experiment.